Large Dense Transportation Problems with Cost Values Given By a Metric

The primary objective of the project is to develop a competitive research proposal on "Large Dense Transportation Problems with Cost Values Given by a Metric." Support of the project will assist a well trained, Hispanic Mathematician to improve his research capability and to complete the planning and development of a regular MRI proposal. The planning activities, if successful, will significantly enhance the potential of the investigator to compete for MRI and other research support.